Heat Transfer in Porous Media

This work involves theoretical and experimental research in the area of heat transfer in porous media. While the subject matter has received some previous attention in research, there remain many important aspects that are not fully understood. The study focuses on non-Darcian and thermal non-equilibrium effects in high-porosity media.